Magnetic Field Driven Transitions in Spin-Lattice Coupled Systems

9701991 Keimer This is a renewal project to study cooperative magnetostructural transitions in electronic materials, especially spin-Peierls systems and magnetoresistive manganites using synchrotron x-ray diffraction in intense magnetic fields. In spin-Peierls systems, the experiments will provide a detailed picture of the magnetic field induced soliton lattice phase as well as the critical behavior near the commensurate- incommensurate transition. In the manganites, a recently discovered insulator-metal transition that can be induced by a magnetic field as well as exposure to x-rays will be investigated, and its potential for applications in x-ray lithography will be evaluated. In addition, possible magnetostructural transitions will be explored in new materials, including charge density wave, spin density wave and spin- ladder systems. %%% This is a renewal project to study novel phases of solids induced by magnetic fields in a unique facility designed for x-ray diffraction in intense magnetic fields. These experiments are of fundamental as well as long-term technological interest. From a fundamental perspective, our understanding of magnetic interactions in metals and insulators, especially the roles of dimensionality and disorder, will be advanced by focusing on the coupling between the magnetic order and the crystal structure in various materials. An improved understanding of magnetic field induced transitions may also lead to a variety of applications, for instance in high-density magnetic storage; of particular interest are recently discovered insulator-metal transitions in manganese oxides that can be induced by magnetic fields as well as exposure to x-rays. ***